Models of Haze on Saturn, Titan and Jupiter

Drs. Tomasko, Doose, and Peter Smith, at the University of Arizona, will analyze observations in hand and to be taken of Saturn, Titan, and Jupiter in a coordinated effort which makes use of several existing and new theoretical tools. These include: 1) input from photochemical calculations regarding the vertical profile of the production rates of gases that can form solid aerosol material; 2) extension of an existing cloud physics program that includes sedimentation, coagulation, and condensation to evaluate the number densities and size distribution of haze particles; 3) evaluation of the absorption coefficients of methane at low temperatures; 4) creation of a radiative transfer code for use in the thermal infrared; and 5) the use of radiative transfer modelling codes for evaluating the reflection and absorption of sunlight from an atmosphere containing the vertical distribution of haze predicted by the photochemical and cloud physics program. The bright and dark cloud features which dominate the appearance of Jupiter and Saturn play important roles in the chemistry, heat balance, and dynamics of their atmospheres. It is now known that a haze of small particles is formed in the stratospheres of Jupiter, Saturn, and Titan by photochemical reactions. These particles fall to tropospheric levels where they can act as nuclei for the condensation of several atmospheric gases such as ammonia and methane. The coordinated efforts of these investigators will greatly increase our understanding of the physical and chemical processes involved in the production, transport, and recycling of atmospheric aerosols as well as their role in driving the radiative and dynamical state of these atmospheres.